Towards more realistic host-parasite models

Feng, Milner, Minchella
The interactions between parasitic trematodes and their
invertebrate and vertebrate hosts are complex. Models of these
interacting systems are similarly complex in order to capture
biologically relevant features of the systems. Advances for many
questions in this area face difficulties in part because of the
large number of parameters involved in the models and because of
the limited data available. The investigators combine the
theoretical and empirical experience of a parasitologist and the
modeling and theoretical expertise of mathematicians to develop
and investigate these models. The work of this project is
threefold: first, new models are proposed for host-parasite
interactions, with more complex models motivated by biological
considerations and newly available data; second, a study of some
mathematical properties of each model is carried out and their
biological and ecological implications assessed, such as parasite
population control or potential species extinction; third,
validation of the models through comparison of model results with
field data follows.
The goal of the project is to develop a theoretical
framework for the study of questions associated with
host-parasite interactions. A particular host-parasite system is
used, human-schistosome-snail (macroparasitic disease), to
highlight the generality of our approach. Specific objectives are
to develop mathematical models to understand the role of various
components of host-parasite interactions in the disease
transmission dynamics, to determine which biological details are
critical components in the model, to construct and analyze
appropriate models in which the parameters are readily related to
field data, and to provide useful information for field workers
and policy makers in public health. The project significantly
advances our knowledge and understanding of the dynamics of
host-parasite systems that include intermediate hosts, by
providing usable models to study natural systems, by analyzing
their sensitivity to the parameters affecting the dynamics, and
by allowing structuring of the complexities of the systems into
hierarchies. Just as important is the possibility to help address
some of the theoretical issues in the control of schistosomiasis
via chemotherapy.